The Numerical Simulation of Cloud Seeding Effects in Cloud Scale and Mesoscale Models

Formation of precipitation in deep convective storms has long been recognized as such a complex process that numerical simulations are needed to assist scientists in understanding critical physical processes. The situation is even more complicated when considering the question of artificial modification of precipitation. The Principal Investigator will use advanced numerical models to study cloud seeding effects on the cloud and regional scale. Questions to be addressed include: (1) how would the distribution of precipitation over an area be altered by cloud seeding; (2) can seeding of individual clouds within a cloud group lead to a more favorable environment for the development of successive generations of clouds; what are the primary and secondary modes of ice generation in clouds of different types and how does seeding affect these different situations? Model results will be continuously compared to actual data collected from previously completed field programs. In the second year of the award the Principal Investigator may participate in a field program using the numerical models in a real time predictive mode. Model results will be used to help guide the activities of the field program on a daily basis.